CCD Readout Controller Design for the Quest Survey

ABSTRACT This project will develop the readout electronics for a mosaic of 96 CCDs. The design for the mosaic and readout system will be based on a successful 16 CCD mosaic developed for the QUasar Equatorial Survey Team (QUEST). The larger camera, also to be used in the QUEST project, will improve on the prototype in a number of significant ways, including improved angular resolution, UV sensitivity, and the ability to extend the survey from +/- 6 degrees declination centered on the celestial equator to +/- 24 degrees.